Drosophila Cuticular Hydrocarbons and Behavioral Response

A preponderance of evidence suggests that chemsensory differences underlie the behavioral isolating mechanisms which characterize related and evolving species in the Drosophila mulleri complex. Behavioral observations have eliminated the possibility of a major role of other sensory modes and strains of D. mojavensis exploit the expected differences in cuticular hydrocarbons which are known to function in courtship in other Drosophila species. Our understanding of the reproductive isolation evolving between the different populations of D. mojavensis will not progress until a fresh approach is developed. Dr. Markow proposes to investigate this problem at a new level by characterizing the cuticular lipids and evaluating the nature of what all present evidence strongly suggests is their extensive involvement in the evolution of the mate recognition systems in these species. Research activities will include a complete characterization of the cuticular lipids of D. mojavensis with respect to their ontogeny in adult males and females from two populations, and an assessment of the influence of particular lipid classes on sexual behavior.